IFIP Workshop (PROCOMET'98): June 18-22, 1998, Long Island, NY

9714755 Gries An international Working Conference on Programming Concepts and Methods (PROCOMET '98) is held in Long Island, New York, on 8-12 June 1998. The conference, organized by working groups WG2.2 (Formal Description of Programming Concepts) and WG2.3 (Programming Methodology) of IFIP (International Federation for Information Processing), serves to foster international interaction and cooperation on research topics such as specification and verification of sequential, object- oriented, and concurrent systems; logical and algebraic foundations of specification and verification; and software tools to support verification efforts. Up to 100 researchers from a number of countries are expected to attend. ***